Mathematical Problems in General Relativity

***
9800115
Christodoulou
The vacuum Einstein equations for gravitation shall be studied without imposing any symmetry or restriction on the size of the initial data. The structure of spacetime singularities resulting from a trapped region shall be explored. Initial conditions which leads in evolution to the formation of trapped regions shall be sought. The possibility of singularity formation not resulting from a trapped region shall be investigated. Criteria for the local extendibility of solutions shall be sought to which improve known results. Also, an effort shall be made to establish a variational characterization of the Kerr solution. The work on the spherically symmetric Einstein equations with matter represented by the two-phase fluid model shall be continued with the aim of characterizing the initial conditions leading to the two alternatives: black hole or neutron star formation. Finally, the two-phase model without the restriction to spherical symmetry shall be studied in the framework of special relativity.

These mathematical studies will provide insight into difficult fundamental questions in gravitation theory.
***